Doctoral Dissertation Research: Mexican Immigration and Health: The Role of Transnational Social Networks

This dissertation would investigate how social networks explain the health advantage of first-generation Mexican-American immigrants over second-generation Mexican-Americans born in this country. The research uses participant observation and in depth interviews with 60 first- and second-generation adult Mexican Americans in Detroit to describe how local and transnational networks differ between the generations and how these network differences help explain differences in health outcomes.